CDS&E: Concurrently Coupling Data-Driven Surrogate with Finite Element Method for Accurate, Scalable Thermal Transport and Melt Pool Simulation of Laser Powder Bed Fusion

Metal additive manufacturing, commonly known as metal 3D printing, allows for complex designs that other methods cannot build. Therefore, it has the potential to change how aerospace, energy, biomedical, and defense components are manufactured. However, making high-quality metal parts with metal additive manufacturing is still challenging. The intense heat from the 3D printer creates rapid temperature changes, which can ruin a final part's quality, accuracy, and performance. Current computer models are too slow and expensive for practical use, and they are too simple to catch these fast changes. This project will build a new computer program to predict quickly and accurately how heat moves during the printing process. This will provide better tools to make reliable parts without wasting time and money on trial-and-error testing. The project will also train undergraduate and graduate students in advanced manufacturing and share these new methods through research training and educational outreach.

This project will establish a new computational framework that couples physics-based finite element analysis with data-driven surrogate models through a local thermal environment representation, which characterizes the evolving thermal state surrounding the melt pool during laser powder bed fusion additive manufacturing. Unlike sequential hybrid approaches, the framework will enable two-way information exchange between the surrogate model and finite element solver throughout the simulation, allowing efficient prediction of melt pool evolution while maintaining physical consistency and scalability. Computational fluid dynamics simulations, experimental melt pool characterization, and laser powder bed fusion builds will be used to develop, calibrate, and validate the framework across a wide range of processing conditions. The resulting methodology will improve the speed and accuracy of thermal simulations for metal additive manufacturing while establishing a general computational framework for coupling machine learning with physics-based simulations for complex manufacturing processes. The project will generate open scientific knowledge, train the next generation of researchers in computational manufacturing, and strengthen the nation's advanced manufacturing capabilities.